Computer Workshops for High School Biology Teachers

This project funds a series of workshops designed to show high school biology teachers and administrators how to use computer technology most effectively in biology. The workshops will provide an opportunity for 150 teachers from the state of Texas to attend five-day workshops emphasizing hands-on computer experience and the associated wet labs. Using courseware modules developed with funding from previous NSF grants, the program will allow participants to study plant growth and development, cardiopulmonary physiology, foraging patterns and energetics, the trophic-dynamic features of a balanced ecosystem, hormonal control of the menstrual cycle, and patterns of competition among algae in a lake. A set of wet lab exercises to accompany the computer exercises will be conducted. The workshops will be held in Houston in the Fall of 1986 and on the campus of Texas A&M University in the Summers of 1987 and 1988. Three- person teams at each of 10 high schools will be invited to attend each workshop. Each team will consist of teachers and administrators. During the Academic Year, one-day workshops will be held in the Fall and Spring. In addition, visits will be made to high schools to assist in the development of computer consciousness among teachers and students.